Doctoral Dissertation Improvement Grant: The Evolution of Competitive Settlement Strategies in Fijian Prehistory

Under the direction of Dr. Terry Hunt, Ms. Julie Field will collect data for
her doctoral dissertation. She will initiate new archaeological research in
the Sigatoka Valley, located in the southwestern corner of the island of
Viti Levu, Fiji. This research will investigate the evolution of competitive
settlement strategies between related and non-related social groups in
Fijian prehistory. Ms. Field's previous analyses of aerial photographs from
the Sigatoka Valley have documented the location and character of over 700
archaeological features, including fortifications, agricultural features,
and unfortified settlements. Despite the quantity and richness of the
archaeological record, no chronology exists for the establishment of the
fortifications, or the arrival of the various patrilineal descent groups
documented at the contact period. Ms. Field's doctoral dissertation
research will examine the development of fortifications in the valley, and
also trace the relationship between the environment and the frequency of
conflict, as evinced by the occurrence of fortifications on lands
traditionally held by patrilineal descent groups, known as mataqali and
yavusa. Her research will incorporate an archaeological excavation and
collection strategy, focusing on a sample of 15 sites from a variety of
environmental zones. The acquisition of datable materials from such
features as walls, ditches, and remote mountain outposts will allow for the
first chronology of fortifications in this part of Fiji. Ms. Field will
also couple the information gleaned from archaeological research to an
environmental model generated within the framework of a geographic
information system (GIS). Comparison of these data, as well as the
distribution of land-holdings and hierarchical social relations that are
known to exist between the patrilineal descent groups of the valley, will
have the potential to indicate group fission, movement, and the various
competitive stances that existed in prehistory. Archaeologists are
interested in the development of conflict and warfare, and the examination
of fortifications is a very direct method for the study of this phenomenon
during the prehistoric period. NSF support will allow Ms. Field to conduct
excavations in Fiji, and also provide for the dating of archaeological
materials. This research is important because it will yield data of
interest to both regional and international scholars, and it explores a
topic that is of great interest to the discipline of anthropology. It will
also support and assist in training a promising young scientist.